ROW: Systematics and Hybridization within the Rockfish GenusSebastes

The economically important genus Sebastes, containing the rockfishes, includes nearly 100 species worldwide and is the largest genus of marine fishes in the eastern North Pacific. The phylogenetic relationships among members of one subgenus of Sebastes, Pteropodus, will be studied using allozyme analysis and restrictiion fragment length polymorphisms of mitochondrial DNA. Additionally, preliminary data indicate that two species of the subgenus, S. caurinus and S. auriculatus, hybridize in areas of Puget Sound, Washington, a rare occurrence among marine fishes. The geographic extent of the hybridization and the parentage of the hybrids will also be investigated.